Arctic Research Commission

This action continues the Interagency Agreement between the National Science Foundation and the Arctic Research Commission and provides for its continuing operations. The Arctic Research Commission was established under the Arctic Research Policy Act of 1984 (Public Law 98-373) and Executive Order 12501. The General Services Administration will provide administrative services to the Commission as specified in Public Law 98-373 (Section 106(4)). This action fulfills the intent of Congress to provide FY 1991 funding for the Commission through the NSF.